Purchase of a Fourier Transform Raman Spectrometer

This award from the Chemistry Research Instrumentation Program will help the Department of Chemistry at Florida State University acquire a Fourier-transform Raman system (FTR). The FTR will be used in research projects aimed at: 1. Characterization of synthetic polymers, particularly model systems essential to understanding phase structure and its relation to other structural factors and properties. 2. Development of analytical techniques for organic species in complex samples, emphasizing chemometric techniques applied to Raman spectrocopy of liquids and solids. 3. Determination of conduction mechanisms and properties of conducting organic polymers. 4. Characterization of metal binding effects on functional groups in humic and fulvic acids. 5. Study of surface chemistry of thermally and chemically modified silica gels. Raman Spectroscopy is concerned with vibrational and rotational transitions in molecules. The information obtained sometimes complements that obtained from an infrared study and provides valuable structural information. Fourier-transform Raman spectroscopy with near-infrared excitation provides a powerful solution to problems of high background fluorescene or sample photodegradation, as well as enhanced signal-to-noise quality. Raman spectroscopy is an invaluable tool in studies of condensed-phase chemical and biomolecular systems.